The Lapetus Ocean-its Birth, Life, and Death: The Wilson Cycle

ABSTRACT

0002690
Dalziel
This action provides conference support for a Geological Society of America Penrose Conference entitled, "The Lapetus Ocean-its Birth, Life and Death: The Wilson Cycle" to be held in Edinsburgh, Scotland 16-21 September, 2000.